Acquisition of Instrumentation for Mass Spectroscopy

This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at Boston University to acquire a mass spectrometer. This equipment will enhance research in a number of areas including the following: (1)photoinduced electron transfer in synthetic peptide reaction centers, (2)antifreeze polypeptides and mineral binding polypeptides, (3)T-cell signalling proteins, (4) test of the feasibility of using estrogen receptor protein , (5) synthesis of N-bearing aromatic heterocycles, (6) the structure and mechanism of function of membrane and some other proteins, (7)the isolation and structure determination of new, biologically active natural products, and (8) basic iron acetates in catalytic oxidation of hydrocarbons and biologically-related substrates. Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic,bioorganic, and organometallic molecules. The addition of the technique of electrospray extends the range of MS to proteins and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest techniques available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.